Collaborative Research: Advanced Small Satellite Technologies Research and Education Center (AS2TREC)

A planning meeting will be held to determine if a new multi-university Industry/University Cooperative Research Center for Advanced Small Satellite Technologies Research will be established at North Carolina State University and the University of Florida. The center will focus on the transformation of the space industry from current Risk Aversion mentality that results in high costs and long schedules to a more responsive, and affordable industry that has Risk Tolerant as its philosophy.

The research results will provide companies with answers to many questions regarding the production and design of small satellites. The multi-university involvement provides a broad research base and can significantly increase the experience of researchers, students, and companies interacting with other universities.